Mathematical Sciences: Cooperative Research with Russia intoHyperbolic and Conformal Manifolds

The proposed research concerns investigations into the Kleinian group aspect of the topology and geometry of hyperbolic structures on 3-manifolds and the geometry of related Teichmueller spaces. This is part of a US/Russia collaborative project with A. Tetenov (Novosibirsk Institute-Russian Academy of Sciences).